Development of AlGaN Biosensor sensitive in physiological saline

CBET-0756594
S. Lee, Ohio State University

This proposal targets the problems of the Debye length in using FET for detection of biomolecules. Since the distance of detection is limited to 10 nm or less, antibodies have not been used to target biomolecules using FET sensors since antibody length is beyond the Debye length. The investigators have taken the approach of using just the targeting antibody fragment for HEMT. To achieve this goal, the approaches taken include: (1) to identify antibody fragments (scFvs and VHH) that recognize MIG (analyte receptors) and engineer selected scFv and VHH thereof for site specific conjugation to HEMT sensing surfaces; (2) to characterize specificity and sensitivity of MIG-detecting HEMTs decorated with scFvs and VHHs and the chemical and electronic properties of sensing interfaces; (3) to use a control gate or an optimized structure on scaled nano-device for sensitivity enhancement and (4) to establish theoretical models and perform simulations, coupled with experimental results, for fundamental understanding.